Reactive Intermediates in Organic Synthesis

The Synthetic Organic Chemistry Program is supporting the research of Dr. Edwin Vedejs of the Department of Chemistry at the University of Wisconsin at Madison. He will explore the development of new phosphorus based reagents for carbon-carbon double bond synthesis, continue his studies of rearrangements and develop a new method for detecting reactive intermediates. These studies will provide new methods for synthesizing the complex molecules needed by modern agriculture and medicine. The investigation will focus on topics at the inferface of synthetic and mechanistic organic chemistry. New organophosphorus ylides will be explored to develop practical reagents for preparation of di- and trisubstituted alkenes with strict control of stereochemistry. Emphasis will be placed on E-selective reagents. The mechanism of the important phosphorus-based olefin synthesis will be explored in detail to settle the controversy regarding ionic intermediates. A new pulse NMR method for monitoring transient intermediates will be evaluated. If the method succeeds in the organophosphorus problem, it will be extended to study other reactions involving short-lived intermediates. Unusual routes to synthetically useful transient species will also be explored. Other topics with an emphasis on mechanism and stereocontrol will include the study of osmium tetroxide hydroxylation of alkenes under the influence of near by heteroatoms in medium sized rings and analogous structures. Stereocontrol based on related local conformer effects will be featured in a total synthesis of 14-membered macrolide antibiotics. New techniques for synthesis of medium and large ring structures will be probed, including sulfoxide cartwheel and allene-driven sigmatropic rearrangements.